West Virginia EPSCoR Program: Phase II

Title: West Virginia EPSCoR Program: Phase II Abstract Narrative: This West Virginia EPSCoR two-year continuation award is to bring the State of West Virginia up to active status with the thirteen current EPSCoR States so that all seventeen States will compete on an equal basis for Advanced Development Grants in 1991-92. The West Virginia proposal embraces two research components: 1) Cell Regulatory Biology Group, and 2) Nonlinear Dynamics Research Group. The total award is for $1,200,000 and presents a non-federal "match" of $4,267,000. The proposal was merit reviewed; site visited and recommended for funding subject to modifications which were incorporated in the award submission. The proposal is recommended for funding.